Analysis and Computation of Shape Sensitivities for Elliptic Interface Problems

ABSTRACT.

DMS-0072438
Lisa G. Stanley
Department of Mathematics
Univeristy of Montana

Engineers, mathematicians and other scientists who use mathematical
models to describe physical systems often need to answer the question:
``How does the system response change as system parameters change?''
For example, how does the airflow around an airplane wing change as
the shape of the wing changes, and how does this affect drag?
Sensitivity analysis seeks to answer such questions. The sensitivity
provides quantitative information which can be useful as a
mathematical tool to gain insight into the behavior of a system.
This proposal deals with the analysis and design of
computational methods for approximating sensitivities for a very specific
class of problems. The research focuses on shape sensitivity calculations
for interface problems. These problems arise in the analysis
of a variety of physical systems such as groundwater flow through
different types of sediment as well as manufacturing processes such as die
casting problems and alloy solifidification problems.
In die casting, for example, there is an interface
between the solidifying part and the mold itself.
When analyzing such a process, the mold and the part may be considered
as one composite material, and in order to optimize the casting process,
the designer needs to determine the sensitivity of the temperature
throughout the composite material to small changes in the thickness
of the respective component materials. Since the mold and the
manufactured part consist of different materials which have different
heat conductivity properties, the mathematical equation governing
the cooling process has a solution which lacks smoothness at the
interface. For these types of problems, computing the sensitivity
requires a different, and more clever, approximation scheme than
that which is typically used to determine the temperature. The
current research attempts to analyze and exploit the mathematical
structure of these problems and to modify existing numerical methods
in order to develop a computational algorithm which is accurate,
efficient and reasonable to implement. Estimates regarding inclusion
of such techniques in the design of rocket engines show that design
cycle time could be reduced from one year to one month. Results
of this magnitude make the development of such
computational tools critical for the national interest
both in cost savings during the design stage and in remaining
on the forefront of new technology.

This project investigates the use of
domain decomposition techniques for the development of
accurate and efficient computational algorithms for shape
sensitivity calculations. Specifically, the work involves
the implementation of Continuous Sensitivity Equation
Methods (C-SEMs) in order to derive infinite dimensional
sensitivity equations which usually take the form of
partial differential equations. The research focuses
on elliptic interface problems containing
parameters which determine the spatial
location or the shape of the interface. The resulting shape
sensitivities exhibit discontinuities across the interface.
Efficient computational algorithms for this
class of problems rely on two essential components. The first
is the mathematical analysis needed to establish fundamental
properties such as existence, uniqueness and regularity.
The second component is
the clever choice of a numerical method which is suitable
for solving the equations. The theoretical analysis guides
the construction of a computational method which exploits
the problem structure. Specifically, an iterative, nonoverlapping
domain decomposition algorithm is used to accurately capture
discontinuities in the sensitivity variable.